DC: Small: Cross-Language Bayesian Models for Web-Scale Text Analysis Using MapReduce

The Web promises unprecedented access to the perspectives of an
enormous number of people on a wide range of issues. Turning that
still untamed cacophony into meaningful insights requires dealing with
the linguistic diversity and scale of the Web. Most current research
focuses on specialized tasks such as tracking consumer opinions, and
virtually all current research treats the Web as both monolithic and
monolingual, ignoring the variety of languages represented and the
rich interplay between topics and issues under discussion.

This project moves the state of the art forward by focusing on two key
challenges. First, highly-scalable MapReduce algorithms for
linguistic modeling within a Bayesian framework, making use of
variational inference to achieve a high degree of parallelization on
Web-scale datasets. Second, novel Bayesian models that learn
consistent interpretations of text across languages and a wide range
of response variables of interest (for example, views on an issue,
strength of emotion relative to an event, and focus of attention).

The techniques developed in this project will be demonstrated on large
crawls of Web pages and blogs. Potential applications for these
technologies include helping a schoolchild learn that people in
different countries may view some issues very differently, helping a
politician understand how constituents are reacting to proposed
legislation, or helping an intelligence analyst understand how public
opinion is evolving in a hostile country.

For further information see the project Web page:
http://www.umiacs.umd.edu/~jimmylin/cloud-computing